REU: Research Experiences in Psychology

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at Kent State Unversity. Students will participate in projects involving psychology, neuropsychology and child development.